Automatic Plant Layout Design with Unequal Department Size, Fixed Shape, and Location Dependent Construction Cost

This research will focus on an approach to automating the arrangement and subsequent drawing of the classical plant layout problem. New factors are included that are not addressed in basic approaches such as Computerized Resource Allocation of Facilities Technique (CRAFT). These factors are fixed department shapes that can be unequal in size, location dependent construction cost, and location constraints for a subset of departments. The approach is based on recent developments in plant layout, namely, simulated annealing, cluster analysis, cut-tree representations, and network models of packing problems. A unique combination of these approaches will be studied in connection with a branch and bound approach to solve this problem with a high probability of finding the optimum. The approach will also highlight changes in requirements that will render an infeasible problem feasible. Subjective considerations from current approaches are removed with algorithmic approaches such as the assignment algorithm. The solution system will allow an attack on plant space reallocation and department relocation because of the feasibility feature and constraint feature.